US-PRC Protocol III - Delegation Visits - Travel Grant

This project is to provide travel and lodging support for the visit to the U.S. of two official chinese delegations on earthquake engineering. The visit is to implement technical exchanges under the terms of US-PRC protocol in cooperative earthquake studies, Annex III: Earthquake Engineering and Hazard Mitigation Research. These two delegations are: 1. Ministry of Construction Delegation (People's Republic of China) Dates: March 17-28, 1993 Number of delegates: 6 Objectives: Coordination of Annex III to the US-PRC Protocol for scientific and technical cooperative research in earthquake studies, earthquake engineering and hazards mitigation. 2. Yunnan Province (People's Republic of China) Dates: March 27 - April 8, l993 Number of delegates: 8 Objectives: Continued exchange of information on building technology and earthquake hazard mitigation.